UAB 2002 International Conference on Differential Equations and Mathematical Physics

This award is for the partial support of the International Conference on Differential Equations and Mathematical Physics. The conference is a part of the series of conferences that were held six times at the University of Alabama and twice at the Georgia Institute of Technology. The conference will cover a broad range of topics, including: analysis of Schrodinger operators, quantum electrodynamics, fluid dynamics, conservation laws, evolution equations, spectral and scattering theory, inverse problems and many related topics. The list of plenary speakers includes many world class established researchers and young talented mathematicians.